Global Time-Series Observations of Rapid Variable Stars

9315461 Winget Over the past seven years the PI and his collaborators have developed a worldwide network of cooperating observers, dubbed the Whole Earth Telescope or WET, to obtain uninterrupted time-series measurements of variable white dwarfs and related stars. This allows the determination of the numerous oscillation frequencies exhibited by these stars. These frequencies strongly constrain models of white dwarfs and the implications include the evolution of these stars, the application of white dwarfs to the study of the history of the galaxy and the physics of materials at extreme densities and temperatures. The study of materials under extreme conditions has applications in a variety of areas of science and technology. ***